Upgrade of Geophysics Computer Workstation Network

9711223 Bloxham This award provides one-half of the funding for the upgrading of the computer network system used for geophysical research in the Department of Earth and Planetary Sciences at Harvard University. Harvard University is committed to providing the remaining half of the cost of acquisition. The network is used to support research across a range of fundamental earth science problems including the generation of the Earth's magnetic field in the core, the fine structure of the Earth's rotation, and the dynamics of the Earth's mantle. ***